Cosmogenic Radionuclides in the GISPII Ice Core: 10Be, 26Al, and 36Cl

9321407 Nishiizumi This award supports a program to measure Beryllium-10, Aluminum-26, and Chlorine-36 in samples from the Greenland Ice Sheet Project Two (GISP2) ice core. A continuous profile of cosmogenic nuclide concentrations from the surface to the bottom of the core will be measured and the resulting time series of nuclide concentrations will be applied to deducing the history of solar activity, deducing the history of variations in the geomagnetic field and dating of ice cores. The time series will also be used to study climatic history through the effects of atmospheric circulation and of atmospheric chemistry on nuclide deposition. The successful coring of the sub-ice bedrock has also provided the opportunity of studying the exposure age of the sub-ice surface. ***